Physical Chemistry Instruction Enhancement-Learning Through Student Centered Activities

9354473 Zielinski The project will produce 24-28 physical chemistry student centered learning modules accompanied by an effective set of instructional and assessment materials. These correct student misconceptions and help students to appreciate their own powers of learning. The new modules will focus on stream lining and modernizing the physical chemistry curriculum in order to adequately portray the excitement and scope of the field while addressing the needs of students as learners. The new modules will incorporate well established pedagogical techniques to engage students in the learning process as they construct concepts in physical chemistry. The new modules will capitalize on the different learning styles of a diverse student population, typically 3rd year male and female science majors who must take physical chemistry. ***y